Kinetics and Thermodynamics of Four Toxic Metals in Coal Combustion and Incineration

Abstract Schofield CTS-9503660 The PI proposes to investigate the combustion chemistries of As, Sb, Se, and Hg, four toxic metals, whose presence can be of concern in coal combustion and incinerator effluents. From the measured profiles of the atoms, oxides, and chlorides of these metals obtained from seeded H2/O2/N2 or H2/O2/Ar flat premixed flames using laser induced fluorescence and emission spectroscopic techniques, he plans to deduce their distributions and those of other possible unidentified species containing these metals as a function of temperature. This information can lead to relevant thermochemical data such as bond energies and heats of formation for these species fop which no reliable data presently exists and to mechanistic insights involving the kinetics of these species.